CRI: CISE Annual Workshop For Principal Investigators of Minority Institutions Infrastructure and Research Infrastructure Awards 2006

Abstract

Proposal: CNS 0631673
PI: Bernat, Andrew
Institution: Computing Research Association
Title: CISE ANNUAL WORKSHOP FOR PRINCIPAL INVESTIGATORS OF MINORITY INSTITUTIONS INFRASTRUCTURE AND RESEARCH INFRASTRUCTURE AWARDS 2006

The Computing Research Association will provide logistical and travel support for the annual CISE Computing Research Infrastructure (CRI) programs principal investigators workshop. This will be complemented by the work of one of the PIs who is arranging the program of presentations. The PI meeting brings together awardees of the CRI program and predecessor programs: CISE Research Infrastructure and CISE Minority Institutions Infrastructure. The meeting promotes collaboration among diverse institutions, shares information about research, infrastructure, institutional support, and other topics that promote stronger experimental research in CISE fields. The meeting is also an opportunity for the investigators to discuss their changing needs with the NSF.